CISE Research Instrumentation

9319107 DeLyser The equipment purchased through this grant will be dedicated to support research in the Departments of Engineering and Chemistry in computer and information science and engineering. The equipment will be used for several research projects, including: (1) Investigation of slotline to microstrip and coaxial transitions and passive devices that incorporate those transitions, (2) Microwave field calculations to support electron paramagnetic resonance instrumentation development and measurements, (3) Speech enhancement and noisy speech processing, (4) Gas turbine heat transfer and particle deposition in gas turbine engines, and (5) Robust Wigner-Ville signal analysis. The equipment consists of two IBM RS6000 model 370 Powerstations, each with a two Gigabyte internal fixed disk, 128 Megabytes of RAM, and a 19-inch color display monitor. They will be networked with three existing X-Terminals, an 8mm tape drive, and a Hewlett Packard LaserJet Printer. The software, in addition to the pre-loaded IBM software consists of the Hewlett Packard High Frequency Design System and Microwave Design System, Entropic Signal Processing Software xwaves+, Fluid Dynamics International Fluid Dynamics Analysis Package, and MATLAB from the MathWorks, Inc. The Department of Engineering has no computational facilities dedicated to research. Furthermore, the department's workstations lack the fixed disk space and RAM required by the researchers. *** E @ j E B TERMINALHLP @ j 9319107 DeLyser The equipment purchased through this grant will be dedicated to support research in the D epartments of Engi @ J ; @ $ $ G @ J @ Times Symbol " Helvetica Chicago Times New Roman & Arial 5 Courier New R ZapfDingbats Palatino Greek GenMath MathMeteor MT Extra " 4 e4 e 7 DeLyser/Denver Mark Purvis Mark Purvis